Project NETWORKS for Teacher Enhancement in Precollege Science Education

Project NETWORKS is a staff development program for teacher enhancement in precollege science education in the Fairfield Public Schools, Fairfield, Connecticut. Cooperating community agencies and institutions will provide a variety of professional growth opportunities for teachers of science, K-12, and their supervisors and administrators. The main goals of the project include the improvement of science education in the schools and revitalization of a mature staff through professional growth incentives. The scheduled offerings will help teachers gain knowledge of science and education content where weaknesses and interests have been identified, become aware of the latest research findings of teaching methodology and learning theory in order to apply them in their teaching and supervision, and experience new educational and science technology in research techniques and skills, such as using the computer as a laboratory instrument.